Algebraic Combinatorics

Abstract for the proposal DMS- 0245385 of Stembridge and Fomin

The investigators will continue their study of combinatorial
structures arising in algebra, representation theory and algebraic
geometry, and to develop software tools to assist researchers in
these areas. One example of such structures are the cluster algebras,
designed to provide a concrete algebraic framework for dual canonical
bases and total positivity in semisimple groups. Our investigations
will also include the study of generalized Kostka-Foulkes polynomials,
sub-Coxeter arrangements, and the combinatorics of crystal graphs and
generalized associahedra.

In selecting combinatorial problems and conjectures to investigate,
the proposers intent has been to identify areas that are most likely to
provide insight into other disciplines. Indeed, combinatorics has an
important role to play in an ever widening array of applications in
both mathematics and computer science; this increasing importance is
related to the demand for explicit or algorithmic understanding of
discrete structures, and has grown in tandem with the prominence of
computation in nearly all phases of research in mathematics.